Structure and Role of D-Amino Acid Transaminase

The goal of this research is to elucidate the structure and function of bacterial D.amino acid transaminase, an enzyme essential for the synthesis of the bacterial cell wall. A gene encoding this enzyme has been cloned so that large amounts of it can be prepared in pure form and crystallized for X-ray diffraction studies. The specific objective of this award is to define the stereochemistry of this enzyme which apparently acts on L-amino acids as well as D.amino acids but at a much lower rate. Since this enzyme serves an essential function in bacteria and is not found in mammalian systems, it could be a valuable target for the development of inhibitors and chemotherapeutic agents against bacterial infections.